Free Probability and Problems in Operator Algebras

Title: Free probability theory and problems in operator algebras

Technical description: The project involves study certain von Neumann algebras and
C*-algebras using the techniques of free probability theory. Some of the
problems on von Neumann algebras to be considered are the isomorphism problem
for free group factors, as well as related classification problems for
amalgamated free products of von Neumannn algebras and for type III von Neumann
algebras arising as free products with respect to non-tracial states.
Regarding C*-algebras related to free products, the project is to study
properties like simplicity, stable rank and pure infiniteness, and to attempt
to find Voiculescu's topological entropy of certain automorphisms of them. In
a different direction, the project involves the study of commutators of
elements from ideals of infinite type II von Neumann algebra factors; in
particular, to characterize which elements are commutators in terms of, for
instance, generalized singular numbers.

Non-technical description: In the mid 1980's, Voiculescu discovered (or
created, depending on your perspective), a new sort of probbility theory
which is quite analogous to usual probability theory, except that the
usual notion of independence is replaced by freeness, which is exhibited
by certain noncommuting random variables. In fact, freeness is related
to and inspired by the combinatorics of free groups, which are groups
with "maximal noncommutativity." In the last decade and a half, free
probability has been shown to be a fundamental new theory, which touches
on diverse areas of mathematics and physics, including random matrices,
combinatorics and operator theory. For example, freeness provides a
deep and satisfying explanation of the appearance of Wigner's semicircle
law in random matrices, and has proven very useful for the further study
of random matrices. The natural context for free probability theory is
noncommutative von Neumann algebras and C*-algebras, because the full
power of spectral analysis can be brought to bear. The project is to
elucidate the structure of C*-algebras and von Neumann algebras related
to free probability theory. Successful completion of this research will
be both and application and an elucidation of free probability theory
and will deepen our understanding of C*-algebras and von Neumann
algebras. Von Neumann algebras and C*-algebras were first considered by
von Neumann and, respectively, Gel'fand and Naimark, in the 1930s and
1940s. They are natural contexts for noncommutative analogues of
classical analysis, and they thus arise naturally in the mathematical
theory of quantum mechanics. Moreover, noncommutative methods are
increasingly being used to study classically commutative problems in
mathematics --- witness the Jones polynomial used to distinguish knots,
and Connes' noncommutative geometric methods used to study fractals.